RUI: Oriented Matroids and Rigidity Theory Techniques for Pseudo Triangulations, Visibility Graphs and Other Structures in Computational Geometry

RUI: Oriented Matroids and Rigidity Theory Techniques for Pseudo
Triangulations, Visibility Graphs and Other Structures in Computational
Geometry

PI: Ileana Streinu

Abstract:

This research is motivated by fundamental questions in Robotics and
Computer Graphics, such as planning the motion of a robot arm, detecting
collisions and computing visibilities. It seeks efficient algorithmic
solutions by investigating the underlying computational structures with
novel mathematical tools and it has a substantial potential to lead to
applications in understanding the nature of the protein folding process in
biology.

The investigator is undertaking a systematic plan of research aimed at
furthering the understanding of how the underlying oriented matroid
structure of points and lines affects properties of a variety of partially
embedded combinatorial structures such as pseudo triangulations and
visibility graphs. The focus is on combinatorial (enumeration, generation,
characterization) and algorithmic questions, the underlying framework is
geometric (dimensions 2 and 3), and the techniques involved come from
matroid and oriented matroid theory, rigidity theory, combinatorial
topology, computational algebraic geometry and graph embeddings.